R/V Wecoma Mid-Life Refit, Phase II

9505827 JONES This project will finish some essential modifications to the Research Vessel WECOMA, an NSF-owned ship operated by the Oregon State University. Funds will be used to replace a worn out, 18 year old boiler for which parts have been difficult to obtain, install an additional air conditioning chiller, reduce humidity in the platform deck accommodations and install an emergence fire fighting pumpwith remote starting capability. ***